SBIR Phase I: Deep UV LED with High Quality p-AlInGaN Layers by Digital Doping Control

This Small Business Innovation Research Project will develop next generation high power deep ultraviolet light emitting diodes with high quality p-type AlInGaN layers with digital doping control. Advancements in AlInGaN material system and device technology have resulted in commercially viable UV light emitting diodes (LEDs) operating in the spectral region from 240 nm to 365 nm.

This innovative technology is positioned to create new applications that were previously unattainable due to the inherent limitations of existing UV lamps or lasers. Primary markets include water/air disinfection, bio-medical and analytical instrumentation, fluorescence sensing, ink curing, and phototherapy.